Collaborative Research: Electronic Processes in Disordered and Biomolecular Systems

TECHNICAL SUMMARY
This award supports theoretical and computational research and education to model the interaction of light with particular materials. The research will focus on understanding electronic properties and charge-transfer mechanisms in disordered systems which has impact on efforts to develop improved photovoltaic and photocatalytic materials, and better light-sensing devices. Scientific goals are to determine: 1) The structure of ordered and disordered photoactive oxides including vanadium and titanium based oxides, 2) The atomistic origin of light induced effects in these oxide systems as well as in glasses, for example the Staebler-Wronski effect in hydrogenated amorphous silicon and analogous phenomena in chalcogenide glasses, 3) Fundamental understanding of charge and energy transfer processes in acceptor-donor biomolecules with a focus on chlorophyll-carotene systems for potential bio-inspired photovoltaics, 4) Fundamental understanding of charge transfer processes in photoactive metal organic framework materials. Practical new codes will be developed for non-adiabatic molecular-dynamics simulation. The research will be carried out in collaboration with experimental groups with an aim to guide experimental research. Collaborations with other theoretical groups will enable powerful computational techniques to be developed.

The PIs will leverage several student research programs already in place in the State of West Virginia; these programs extend to Drabold through Lewis and thus will impact Ohio University students as well. The PIs will recruit students from these programs and are committed to a mission of broadening participation in their computational materials research. Developing a strong program in nanoscale science and engineering, including developing cyberinfrastructure capabilities, is also a priority for the State of West Virginia. The PIs will further extend and develop a strong program of science outreach to K-12 students and teachers in Appalachia. The PI’s will start a pilot annual joint scientific conference entirely for, and to the maximum degree possible, administered by regional students. The efficacy of this work will be quantitatively gauged and reported.

NONTECHNICAL SUMMARY
This award supports theoretical and computational research and education to use advanced computational methods to study how light interacts with several classes of technologically important materials, focusing on the motion of electronic charge induced by exposure to light. Technological applications of these materials include generation of energy from sunlight and catalyzing chemical reactions like the transformation of carbon dioxide into methanol induced by light. The research will focus on understanding key quantum mechanical states of electrons that are important when the material is exposed to light and how electronic charge moves from one group of atoms to another.

This is fundamental research that contributes to the intellectual foundations of solar energy generation and photochemistry. The research will be carried out in collaboration with experimental groups with an aim to guide experimental research. Collaborations with other theoretical groups will enable powerful computational techniques to be developed.

The PIs will leverage several student research programs already in place in the State of West Virginia; these programs extend to Drabold through Lewis and thus will impact Ohio University students as well. The PIs will recruit students from these programs and are committed to a mission of broadening participation in their computational materials research. Developing a strong program in nanoscale science and engineering, including developing cyberinfrastructure capabilities, is also a priority for the State of West Virginia. The PIs will further extend and develop a strong program of science outreach to K-12 students and teachers in Appalachia. The PI’s will start a pilot annual joint scientific conference entirely for, and to the maximum degree possible, administered by regional students. The efficacy of this work will be quantitatively gauged and reported.